Image Deblurring and Decomposition: Texture and Color Image Analysis

Kang
0707184

One of the recent developments of mathematical image
processing is the introduction of the G-norm by Meyer, which
opened the door for handling texture and oscillations. The
investigator further develops these techniques for color images
and blurred texture analysis. The goals of this project are to
explore more sophisticated color models for image decomposition,
as well as to correctly capture the texture in blurry images.
The main challenge is to tackle image blind deconvolution in
combination with image decomposition techniques.

The investigator studies the classical problem of image
deblurring in a modern setting of texture and color image
analysis. Recognition of detail has become more crucial for
better diagnosis of medical images and for more accurate recovery
of satellite images. This project provides theoretical
background for methodologies and can be applied to solve real
imaging problems arising from digital photo restorations, medical
imaging, communications, information science, and many other
applications.